Childhood

WNET/Thirteen will produce a series of 10 one hour public television programs, "CHILDHOOD" that will explore how children grow and develop,and how parents and societies have raised children throughout history and across cultures. Extensive use of current research and scholarships from the disciplines of developmental and cognitive psychology, anthropology and sociology, education, history and culture will be used to create a coherent and revealing view of childhood development. The series will be heavily promoted on public television, will be accompanied by a trade book and viewer's guide, and should generate audiences of more than 10 million viewers in its first series airing, based on prior experience with the producers prior series, "The Brain"; the accompanying trade book sold more than 150,000 copies. The producers of this series are highly skilled at the interpretation of complex scientific subjects on television, with a number of award-winning series to their credit. They have assembled an prestigious international team of advisors and consultants. WNET has a realistic plan for raising the $7.5 million necessary to complete the project from the PBS/CPB Superfund, corporations, and co-production agreements. An award of $200,000 in FY 87 and continuing funding of $200,000 in FY 88 based on satisfactory progress is recommended.